Ultralow Temperature Studies of He-3 Boundaries, Superfluid He-3, and Low Dimensional Material

A broad study of materials at very low temperatures and the development of associated techniques. Emphasis is on the behavior of the quantum fluid He3 and on the production and properties of "nanostructures" (mesoscopic systems).